EITM Competition: Graduate Student Training

This Empirical Implications of Theoretical Models training award affords the student the opportunity to take an additional year of courses at the University of Michigan in formal and empirical training. The training will enable the student to undertake a high quality research project on how the need to build lawmaking coalitions with outsiders affects organizational decisions in the U.S. House of Representatives.

The training has the broader social value of enhancing understanding of the U.S. House of Representatives and strengthens the research and teaching skills of this future member of the professorate.